Neutron Interferometry and Neutron Schrodinger Wave Optics (Physics)

A number of experiments using the wave properties of neutrons will be carried out. In many ways these properties are analogous to those of electromagnetic waves, and this correspondence will be explored in several ways. The results will provide a further basis for our theoretical understanding of the most fundamental aspects of matter and energy.